GOALI: Strain Effects in Colossal Magnetoresistance Manganites

9705482 Millis This is a award under the Grant Opportunities for Academic Liaison with Industry (GOALI) program and is funded by the Division of Materials Research and the Office of Multidisciplinary Activities. Support will be provided for research on the relation between materials properties and physical properties of the colossal magnetoresistance (CMR) manganites. The focus will be on how strain affects materials properties. The research will be done as a collaboration between Johns Hopkins University and Bell Laboratories of Lucent Technologies. Theoretical research will be done at Johns Hopkins and experimental research will be done at Bell. A graduate student will spend time at Bell as part of this project. Expressions of interest in this research have also been given by DuPont, Hewlett-Packard, Varian and IBM. CMR manganites are perovskite materials in which the resistivity can be changed by orders of magnitude by application of a few Tesla magnetic field. While there is no immediate commercial application, it is widely believed that such a dramatic effect will be useful for technology. It has become clear that the physical properties of a given sample of CMR material depend strongly on sample form and on how the sample was prepared. This dependence of physical properties on materials properties must be understood and controlled if these materials are to be technologically useful. It is likely that one important source of the observed variability is strain. The main focus of this research will be on understanding and quantifying the effects of strain on materials properties, but other effects arising from the presence of junctions between CMR and other materials may also be considered. %%% This is a award under the Grant Opportunities for Academic Liaison with Industry (GOALI) program and is funded by the Division of Materials Research and the Office of Multidisciplinary Activities. Support will be provided for research on the relation b etween materials properties and physical properties of the colossal magnetoresistance (CMR) manganites. The focus will be on how strain affects materials properties. The research will be done as a collaboration between Johns Hopkins University and Bell Laboratories of Lucent Technologies. Theoretical research will be done at Johns Hopkins and experimental research will be done at Bell. A graduate student will spend time at Bell as part of this project. Expressions of interest in this research have also been given by DuPont, Hewlett-Packard, Varian and IBM. CMR manganites are perovskite materials in which the resistivity can be changed by orders of magnitude by application of a few Tesla magnetic field. While there is no immediate commercial application, it is widely believed that such a dramatic effect will be useful for technology. It has become clear that the physical properties of a given sample of CMR material depend strongly on sample form and on how the sample was prepared. This dependence of physical properties on materials properties must be understood and controlled if these materials are to be technologically useful. It is likely that one important source of the observed variability is strain. The main focus of this research will be on understanding and quantifying the effects of strain on materials properties, but other effects arising from the presenae of junctions between CMR and other materials may also be considered. ***